Towards a Framework for Interactive Inter-disciplinary Expert Systems Development Environments

This project investigates expert system software development environments for problems that can only be solved with interdisciplinary knowledge. The research is focussed on studying ways to combine existing systems to solve new problems. The starting point for the research is the PI's previous work on expert systems for papaya management, soil acidity, and nitrogen analysis that integrated multiple domains of expertise into intelligent agricultural crop management systems. The challenge of the project is to include such divers domains as agricultural, chemical, financial and management aspects of the problem domains of choice (papaya and nitrogen management systems). The work is expected to increase knowledge about expert systems and also about ways to incorporate the results of multi-disciplinary collaborations into system developments.